Collaborative Research: Dynamics for Social Networks Processes: Comparing Statistical Models with Intelligent Agents

The goal of this project is to reconcile two methods for modeling change in
social networks over time: a class of statistical models and intelligent agent
models. The research contrasts the properties of these two approaches,
exploring what qualitative dynamic behaviors in social networks are captured
usefully and interpretably by each. The primary tools are latent variable
representations and dynamical systems analysis. The result is a framework that
characterizes the strengths and limitations of the two classes of models in
multiple settings, and provides feedback that stimulates refinement of
existing theories for social networks and development of new theory.

Social network theory has produced a wealth of paradigms to describe the
nature and evolution of groups of people who interact, possibly in subgroups,
with one another. Settings in which social network theory has been applied
range from friend to corporations to political blocs to religious groups.
Counterterrorism is one application of particular current importance, in which
the notion that the network might have latent (unobservable) characteristics
that are important to its evolution over time is especially germane.
Currently, however, there is not good understanding of strengths and
limitations of different models for the dynamics of social networks.
The researchers on this project, drawn from the social sciences,
statistics and applied mathematics, are constructing a conceptual and
operational framework that allows the principled comparison of different
models in multiple contexts. In addition to advances in theory and
methodology, the framework enables social sciences researchers and other
analysts to choose a model whose dynamic properties are most appropriate to
each application.